Pingree Park Dynamics Workshop

This award will provide support for participants, especially women, graduate students, postdocs, and young faculty, in the "Pingree Park Dynamics Workshop” that will be held at the Pingree Park campus of Colorado State University from August 3-8, 2009.

This conference, the subject matter of which falls under the general heading of topological and measure-theoretic dynamical systems, will focus on two principal themes: (1) orbit equivalence theory and (2) descriptive set theory as it relates to dynamical systems. Both represent extremely active areas of current dynamical sytems research. The format of the workshop is such that young people will have ample opportunities to speak and otherwise be engaged in the various conference activities.